Metropolitan Atlanta Theory Seminar Participant Support; Atlanta, Georgia; 1994-96

9319318 Amir Starting in the Fall of 1992, the weekly Metropolitan Atlanta Theory Seminar (MATS) began its activity which this grant continues to support. The goal of the seminar is stimulating activity in Theoretical Computer Science in the greater Atlanta area. Attendees include faculty and students from Georgia Tech (the College of Computing, the Math Department, Industrial and Systems Engineering, and Electrical Engineering); University of Georgia at Athens; Emory University; University of Alabama; Dekalb College and two HBCU's, Spelman College and Clark Atanta University. ***